University of Kentucky Request for High Performance Connection to vBNS

This award is made under the high performance connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64. It provides partial support for the installation and operation of a DS-3 ATM connection to the nearest MCI POP for access to the Very High Performance Backbone Network Service (vBNS). Applications include: - Reliable Multicast: TMTP Protocol - The Unify System - Computational Materials Science Research - Materials Engineering Research - Molecular Dynamics Study of Large Scale Real Materials - Computational Particle Physics - Computational Fluid Dynamics - Numerical Analysis of Infrared Spectrometry for Medical Diagnosis Collaborating with: - Oak Ridge National Lab - National Energy Research Supercomputer Center - National Center for Supercomputing Applications The award provides partial support of the project for two years.